Niobium-Oxygen Interactions and Crack Growth in Nickel-Based Superalloys

9632994 Gao In this group project Lehigh University, collaborating with the University of Maine, is investigating the role of niobium in environmentally-assisted crack growth at elevated temperatures in nickel-based superalloys. From this interdisciplinary activity the researchers plan to develop mechanistic models that quantify the functional relationships between the crack growth rates and internal variables (e.g., niobium concentration) and external variables (e.g., environment and mechanical loading). The program is designed to develop a fundamental understanding of the mechanisms of environmentally-assisted, high- temperature crack growth and to demonstrate the importance and effectiveness of predictive mechanistic models, using selected nickel-based alloys as the prime vehicle for crack growth rate studies in engineering materials. The research program consists of four parallel activities covering environmentally-assisted crack growth in the areas of mechanical, microstructural, chemical, and mechanistic modeling. %%% The research is based on: (l) a recent fundamental discovery that niobium is the principal element responsible for environmental enhancement of crack growth (EECG) in Inconel 718 alloy (this finding identifies correctly, for the first time, the key material variable for EECG and provides a consistent explanation for the long-known varying degree of environmental sensitivity among the superalloys); and (2) the need for management of engineered systems and aging infrastructure and life cycle costs, which requires mechanistic models for accurate prediction of crack growth rates. ***